CICI:TCR:Automated Orchestration of Scientific Data Workflows in Open Clouds with Strong Security Guarantees

This project develops open-source software that enables the deployment of privacy-preserving scientific workflows in open and commercial cloud infrastructures. The envisioned platform, called the Open Privacy-preserving Analytics Lab or OPAL, provides data protection at rest, in transit, and (most importantly) during use, with privacy-enhancing technologies like cryptographically secure multiparty computation and trusted execution environments (TEEs). OPAL is a testbed that allows organizations to easily try privacy-enhancing technologies and determine if these new technologies can benefit them. OPAL also orchestrates real-world deployments of privacy-enhancing technologies on the cloud, with automated planning and manual tweaking of scientific data workflows based on the desired threat model and available hardware.

This project includes three complementary thrusts that focus on multi-cloud deployments, support for complex workloads, and integration with confidential computing technologies. First, the project enables the deployment of secure data workflows across multi-cloud environments and integrates OPAL with open and commercial cloud infrastructure. Second, the project extends OPAL to accommodate mixed workloads consisting of relational, time series, and machine learning analytics, and supports many hardware options (such as CPUs and GPUs) within a unified distributed system runtime. Third, the project creates software tools and services to enable a smooth integration with the latest generation of hardware TEEs. The OPAL platform builds upon the Boston University secure data analytics stack and is the result of the team's efforts to build and deploy applications in the wild that use privacy-enhancing technologies and provide practical performance with strong security guarantees.